Geometric Applications of Exterior Differential Systems

PROPOSAL DMS-0305829

PI: Joseph M. Landsberg
Title: Geometric applications of exterior differential systems

ABSTRACT

Dr. Landsberg will work on two projects: the dual defect conjecture
and the classification of Legendrian varieties and contact Fano manifolds.
The second project originates with a question in differential geometry,
the classification of compact quaternionic-Kahler manifolds, which, thanks
to work of LeBrun and Salamon, is essentially equivalent to the
classification of contact Fano manifolds. Inside the tangent space of a
general point of a contact Fano manifold is an immersed Legendrian
variety and knowledge about such varieties is important for the contact
Fano problem. The Salamon conjecture is that all contact Fano manifolds
are homogeneous.
The first project is to show that the dual variety of a
smooth variety of codimension less than half its dimension is a
hypersurface. This question is of importance in algebgraic geometry as
part of the investigations motivated by Hartshornes's conjecture on complete
intersections. The techniques that will be developed to solve this
problem are as important as the problem iself- a combination of exterior
differential systems and representation theory that will be useful for
other problems in geometry and other areas of science such as
computational complexity and algebraic statistics (Baysean networks).

Dr. Landsberg will use techniques from partial differential equations
(more precisely, exterior differential systems) and representation
theory (of simple Lie algebras) to study two problems in geometry
related respectively to dual varieties and contact Fano manifolds. In
addition to the importance of these questions to the mathematical
community, the techniques that will be developed will be applicable to
problems in other fields such as computational complexity and algebraic
statistics (Baysean networks).